Aminostratigraphic Offsets in the Marine Quaternary of the Atlantic Coastal Plain: A Search for Possible Causes

Aminostratigraphic analysis of Quaternary mollusc samples from subsurface samples of the submerged and emerged portion of the Atlantic Coastal Plain in North and South Carolina will be conducted. These results will aid in the testing of two mutually exclusive aminostratigraphic models for Coastal Plain Quaternary correlation. These models require either that the region between Norfolk, VA and Charleston, SC has preserved an unusual late Quaternary sea-level/tectonic record or that some U-series coral dates for the region are incorrect. Currently available data from the Pleistocene of the Cape Lookout, NC region indicate that this area marks the boundary between two distinctive types of preserved stratigraphic records, with the Quaternary record northeast of Cape Lookout being more complete. The implications of this contrast in preserved records for Coastal Plain aminostratigraphic and U-series data, and for regional thermal, sedimentologic and tectonic histories will be evaluated during the proposed research.